Simulation of Lattice Chains (Materials Research)

Dr. Dickman proposes Monte Carlo studies of linear polymers on two and three dimensional lattices. Various equations of state for polymers - Flory and Flory-Huggins mean-field theories, as well as the predictions of renormalization group methods - have yet to be subjected to a definitive test. It is proposed that these theories be compared against the results of Monte Carlo simulations of a particularly simple model: athermal chains on a lattice. The simulations are to extend over a wide range of densities, and to rather long chains, and should be performed in both two and three dimensions. Such studies are rendered feasible by a new method in which the pressure is related to the segment density at a wall. It is therefore natural to investigate wall-polymer interactions in the course of the simulations. The studies should also yield information on correlations and on the variation of chain conformational properties with density.